Ecological Modeling: From Individual Utilization of Space to Community Structure

Cosner
0211367
The investigators derive and analyze mathematical models
that describe how spatial aspects of the environment and the ways
that organisms utilize space and disperse through it influence
the dynamics of populations and the structure of ecological
communities. The underlying motivation for the project is to gain
a better understanding of how spatial effects can threaten or
maintain biodiversity or affect interactions between important
types of organisms such as crops, pests, and biological control
agents. The project is focused primarily on edge-mediated
effects in habitat fragments and on the effects of nonrandom
dispersal. The main goal is to gain insight into the ways that
edge-mediated effects and dispersal behavior influence the
persistence or extinction of species. Understanding edge-mediated
effects is important because one of the most significant ways in
which humans alter natural environments is by fragmenting
habitats and thus creating edges. The investigators study many
spatial effects, including edge-mediated effects, via
reaction-diffusion models. However, reaction-diffusion models
assume random dispersal, and the dispersal patterns of some
organisms are affected by behavioral responses to the presence of
prey, predators, or conspecifics. Reaction-diffusion equations
cannot capture those effects, so the investigators model them
with more general forms of quasilinear parabolic partial
differential equations. The investigators use methods and
results from the theory of partial differential equations,
dynamical systems, and nonlinear functional analysis to develop
the mathematical framework needed to analyze the models.
The investigators study mathematical models for the ways
that plant and animal populations are affected by the size and
spatial structure of the environment they inhabit and by the way
they move or spread through the environment. The goal of the
project is to gain a better theoretical understanding of how
spatial effects influence the persistence or extinction of
populations. The underlying motivation is to provide insights
into the impact of spatial effects on biodiversity and on
economically important organisms such as crops and pests. The
potential practical benefits of the project are improvements in
decision making in areas such as land management, conservation,
and urban planning. Much of the project is focused on the
effects of habitat edges, because one of the main effects of
human activity on the environment is to divide it into fragments
and create edges, for example by building roads. Different
organisms respond to edges in different ways; for example, a new
road may isolate a population of one species of animals that
refuse to cross it but may add to the mortality of another
species of animals that do attempt to cross. When population
interactions such as predation by one species upon another are
combined with spatial effects, the results can be complex and
sometimes counterintuitive. To understand them the investigators
derive mathematical equations that incorporate spatial effects
and population interactions and analyze those equations to
determine when they predict persistence of populations versus
when they predict extinction. To conduct the analysis the
investigators use and develop various mathematical methods.